Spelman STEM Scholars (S3) Program

Interdisciplinary (99)

The Spelman STEM Scholars (S3) program is providing competitive scholarships and academic/career-building support to academically-talented, economically disadvantaged African American females who pursue a STEM degree. Special emphasis is being placed on building a critical mass of prospective engineering graduates in Spelman's dual-degree engineering program with Georgia Institute of Technology and its Black Graduate Student Association. Spelman's esteemed group of faculty, "The Vanguard Faculty," will support and guide the first-year students. In addition to the scholarship support, Spelman is developing three new support initiatives: 1) introduction to engineering seminar series, 2) a graduate student mentoring program, and 3) scholarship/graduate school writing workshop.